Mathematical Sciences: Research in Group Theory

This project is concerned with research in group theory. There are several different directions that this research will take. The principal investigators will study the subgroup structure of the finite simple groups, examine flag transitive linear spaces and produce a unified and accessible treatment of the existence and uniqueness of the sporadic groups. In addition, the Brauer centralizer algebras associated to the orthogonal and symplectic groups will be examined, including connections of these algebras to enumerative combinatorics and representations of the Braid group. This research deals with various aspects of group theory. One part is concerned with problems dealing with finite simple groups; the other with group representation theory and combinatorics. These are both very active areas and the results will be of interest to investigators in many areas of mathematics.